Optical Tweezers

An affordable "optical tweezers" microscope system will be developed. With such a system small objects such as single biological cells can be captured and manipulated by means of a focussed laser beam. The use of inexpensive diode laser technology will be explored as a basis for a commercial device.